Symposium on Probing Luminous and Dark Matter; University of Rochester

Dr. Ferbel seeks funding, $2000, for a luminous and dark matter symposium at the University of Rochester. The scientific discussions resulting from this symposium will be published by World Scientific Press.